Nanoporous Films as Hosts for Selective Chemical Sensors

9710001 Bein The focus of this research is on nanoporous films as hosts for selective chemical sensors derived from assembled ordered nanostructures composed of optically responsive receptors encapsulated in thin films of micro- and mesoporous hosts. The novel structures will be formed by first inducing the growth of certain molecular sieve crystals and mesoporous ordered channel structures on modified sensor substrates, followed by encapsulation of receptor sites into these channels. Using this approach, it will be possible to create chemically sensitive nanostructures on optical fibers that combine unique chemical selectivity with high stability due to encapsulation in rigid host cages. %%% The focus of this research is on nanoporous films as hosts for selective chemical sensors derived from assembled ordered nanostructures composed of optically responsive receptors encapsulated in thin films of micro- and mesoporous hosts. The novel structures will be formed by first inducing the growth of certain molecular sieve crystals and mesoporous ordered channel structures on modified sensor substrates, followed by encapsulation of receptor sites into these channels. Using this approach, it will be possible to create chemically sensitive nanostructures on optical fibers that combine unique chemical selectivity with high stability due to encapsulation in rigid host cages. ***